Development of an Undergraduate Computer Graphics Laboratory

This project is to develop a computer graphics laboratory using Tektronix computer graphics terminals. The laboratory will support a new computer graphics course and an on-going program of student research. The new course will emphasize the applications of mathematics to computer graphics and will enable students to study and experiment with the algorithms and mathematical techniques of two and three dimensional graphics.